Interpreting Quantum Field Theory

Professor Teller, in collaboration with Professor Michael Redhead, is undertaking a major project to produce a new interpretation of quantum field theory. Heretofore, most work on this topic has used a particle interpretation with much less sophistication than has been applied to the interpretation of the parent theory, quantum mechanics. Professors Teller and Redhead will develop their new interpretation of quantum field theory based on an application of the quantized harmonic oscillator and will build this into an interpretive tool which will give a much more faithful grip on the theory than does the particle approach. That such a new interpretation is needed is clear because this theory provides our currently best explanation of the nature of matter. The current impoverished state of its interpretation constitutes an important gap in our larger scientific understanding of the world. Yet such an interpretation of QFT has been difficult to construct because of the newness and complexity of the theory. This study will begin by showing the inadequacy of anything which could plausibly be called a particle interpretation as well as develop their alternative. Both Professors Teller and Redhead are well qualified to carry out this research. Professor Teller has made significant contributions under previous NSF grants to our understanding of the philosophical foundations of quantum mechanics. Professor Redhead is a noted physicist and philosopher. Their collaboration promises to make a very significant contribution to our understanding of the most formidable of theories concerning the nature of matter. Their projected study will be of great value for physics and philosophy alike.